Presidential Faculty Fellowships

9553068 Johnson The research agenda is to develop a new way of solving bioelectric field problems using computational steering. This involves integrating the basic scientific formulation of the problem and its mathematical model with the development of computational paradigms for its solution and with the engineering of computer implementations that allow interactive design and visualization of the results.